2004 High Pressure, Research at Gordon Conference

The High Pressure Gordon Conference has been held biannually for 49 years: it
continues to be vital to new science developments in fields as diverse as physics, chemistry,
earth/planetary science, materials and biology. It is one of the few that crosscuts a broad
spectrum of topics with a unifying theme of condensing matter with pressure. Spectacular
advances are now being made in high-pressure methods for creating new materials, and for
studying physical, chemical and biological processes under high-pressure conditions: recent
breakthroughs include diffraction of light elements using neutron scattering at extreme
conditions, direct measurement of thermal conductivity, acoustic velocities, and even the full
density of states at extreme conditions, polymerisation of molecules into new solids, creation
of super-hard materials, increasing superconducting Tc to record values, formation of
unexpected incommensurate structures in metals; and advances in fundamental theoretical
descriptions of simple molecular systems. Emerging areas include high-pressure
crystallography of hydrogen containing materials, new techniques for synchrotron/neutron
studies and ongoing development of inelastic x-ray scattering on small volumes, and
understanding mineral physics of outer planets and stars. The 2004 GRC will feature invited
talks in exciting new areas at the forefront of science, including shock wave techniques of
double shock, laser shock, and shock-spectroscopy experiments; high pressure melting and
liquid structure;, super high pressure acoustic velocity measurement on metals and minerals;
sampling the deep Earth with single crystal x-ray studies at record pressures; new synchrotron
and neutron experiments; high-pressure superconductivity, and new metallic behaviour at
high pressure. For a vibrant and successful conference, it is essential to represent all sectors
of the field, including graduate students, post-docs and junior faculty, as well as newcomers
to the high-pressure field. Diversity is also stressed, including representatives from many
countries as well as more female scientists than in past conferences. Financing participation
in such a conference is an impediment to attendance by many attendees, that can not be
covered by the existing GRC fund. Here we request supplementary funds to subsidize travel
and conference fees, to enable participation by students and junior scientists, as well as
"newcomers" to the high-pressure field, with great benefits for US and international science.
Funds are being requested from two different NSF programs in approximately equal amounts
since these two areas are heavily represented in the program.
Broader Impacts:
This conference has traditionally had few women and minorities, often less than 3%.
This conference there are 3 women speakers, greater than 10% as well as a woman discussion
leader and woman chair (this conference's first). There are two Hispanic speakers, but not
American Hispanic. It is expected that this conference will have a larger than average
number of women scientists, a very underrepresented group in physics, and physical sciences.
Traditionally Gordon Conferences are platforms where one may bring in speculative
ideas to generate discussion, hence no photographs or publishable results. However, it is here
where inspiration to new directions and collaborations lead to new publications. The Gordon
Conference on Research at High Pressure is only one of two conferences where these
scientists meet, the other being the biannual AIRAPT, held only in odd numbered years.
This conference is extremely important for students and postdocs to attend (6 of the
speakers are students or postdoctoral scholars, an even larger number are invited posters) as it
is an integral part of their education to meet the key people in the field of high pressure,
discuss their work and putting their own ideas under the scrutiny of experts, and to be
inspired in new directions. This is what will help generate effective new scientists.